The role of inhibitory control in verbal decision-making

Speaking requires us to make split-second decisions about which words to use to convey what we want to say. Choosing the right word among the pool of possible words often requires suppressing words that might have somewhat similar meanings, or that often occur together, but are wrong in the current context. This project uses cognitive and behavioral testing to strengthen our understanding of how we decide which word is the right word at the right time, a fundamental capability that underlies a core capacity of human intelligence, i.e., human communication. Understanding how the control of speech works, and when it breaks down, has important implications for learning, and for clinical assessment and treatment of language disorders. The project supports training of undergraduate and graduate students, building a U.S. STEM workforce.

This project examines how we decide which word to say when speaking. It investigates this question from a paradox in verbal decision-making; while it is generally true that we are better at verbal decision-making when we have more experience with the language, repetition can lead to a reversal where verbal decision-making for things we have experienced less becomes faster and more accurate. For example, bilingual speakers initially name pictures faster in their dominant language than their non-dominant language. But when they repeatedly switch between their two languages to name pictures, they eventually are faster at naming the picture in their non-dominant language. The hypothesized mechanism for this reversal is that the brain actively suppresses the more experienced aspects of language to allow the less experienced forms to be used (inhibitory control). Cognitive and behavioral tasks, along with eye-tracking, are used to test this hypothesis across a wide variety of language situations in which experience matters to word selection, and repetition might lead to a reversal. It also explores whether the inhibitory control mechanism generalizes to other aspects of cognitive decision-making.